CISE Research Instrumentation: High-Performance ATM Network for Computational Science

CDA-9529459 Michael W. Berry Jens Gregor Mark T. Jones James S. Plank Padma Raghavan University of Tennessee An ATM networked 12 high-performance workstations supports several research projects in the Computer Science Department at the University of Tennessee, including in particular: Scientific Applications in a Distributed Computing Environment, PET Image Reconstruction in a Distributed Environment, Parallel Algorithms and Software for Unstructured Mesh Computations, Fast Checkpointing in Parallel Environments, and Parallel Sparse Matrix Computations. This computing laboratory provides required resources of CPU time, local memory, communication bandwidth and disk storage for the computationally intensive projects. Some of the research tasks require this dedicated laboratory for their exceptionally long runtimes. The systems project requires access to such an environment to run meaningful experiments. In addition, the dedicated laboratory facilities may be reconfigured or subjected to simulated faults without concern about the effects on other users. The research projects will produce public-domain software. Because several government and industrial sites will soon have facilities similar to that which we propose, regular access to such a laboratory is essential for quality software research and development.